Psychometric Modeling in Heterogeneous Populations

The research proposed here would tackle a difficult problem ("heterogeneity") which arises in the statistical modelling of relationships among concepts measured in nonhomogeneous populations. In theoretically driven research in many fields of social science, concepts have multiple measures and the measures are related to each other and to concepts in ways that make estimation of statistics and interpretation of results very difficult. Taking this much as given, this proposal considers theadditional complications that arise when more than one subpopulation has their opinions or attitudes measured (e.g., in public opinion or educational research). This additional complexity calls for special methods if practical problems in merely estimating unknown parameters are to be addressed. This PIproposes to investigate the use of methods (e.g., multilevel models) not typically used in past research. The PI is generally accepted as one of the top scholars in this area of methodological research.